Observational and Theoretical Studies of Barred Spiral Galaxies

This award supports a combination of new observations, theoretical analysis, and numerical modeling to develop fully self-consistent models of the dynamics and structure of barred spiral galaxies. The investigators are world leaders in this field, and this study will greatly deepen our understanding of the fundamental mechanisms that determine the structure and evolution of these objects.